STEM Scholars Project

A minimum of 36 scholarships are awarded annually at a maximum of $3,000 per scholarship. Recipients are chosen from candidates majoring or planning to major in the Natural Sciences, Computer Technology, Computer Integrated Manufacturing, Engineering, Mathematics, and Mathematics or Science Education. Scholarships are available to students in both Associate of Science and Associate of Arts programs. The intellectual merit of the S-STEM program is the assurance that students perceive skills in science, technology, engineering, and mathematics as necessary to achieve greater career opportunities and success. This is accomplished through a student support mechanism as well as through a virtual support group established for the STEM scholars. The rapid economic growth of northeast Florida and the demand for trained STEM professionals, including K-12 teachers of science and mathematics assures broader impact.